Post Doc: New Shape and Reflectance Models for Vision and Image-/Based Rendering

EIA-0004056
Kriegman, David
University of Illinois at Urbana-Champaign

Postdoctoral: New Shape and Reflectance Models for Vision and Image-Based Rendering

Two areas of computer vision and image-based rendering are to be explored
by the postdoctoral associate. The first project will result in methods
for more realistically rendering scenes by constructing surface reflectance
models from image data. The result could lead to a new way to measure a
bi-directional density function under known lighting conditions and to
render images under novel lighting conditions. The second project aims to
explore the recognition of objects whose shapes are continuously changing.
The problem is phrased as an abstract contour shape recognition problem
where shape evolves dynamically. Several immediate applications in biology
and related fields are expected.